TC: SMALL: Contracts for Precise Types

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

In programming languages research, there is a strong trend toward extremely
precise type systems, which can encode and verify extremely detailed
assertions about the behavior of programs and the structure of the data they
manipulate. However, precision is a two-edged sword. Combining precise
types with the other language features can lead to complex definitions that
are difficult to explain, implement, and reason about.

The goal of this project is to tame this complexity using contracts --
executable partial program specifications that are checked at run-time. The
project's primary contributions will be (1) to show how an improved theory
of contracts can be used to design and implement powerful, yet tractable,
precise type systems, (2) to develop a particular precise type system
extending regular expression types with security annotations, and (3) to use
the resulting system to demonstrate a useful form of ``updatable security
views'' in a multi-level Wiki allowing groups of users with different
clearance levels to collaboratively author structured documents.

This application is motivated by discussions with NSA researchers about the
need in the intelligence community for such tools. The project's software
deliverables will be distributed freely under an open-source license and
integrated with the popular Unison file synchronizer.